Novel Ohmic Contact Technology to P-type and N-type GaN

The specific resistance of ohmic contacts to n- and p-type GaN, AlGaN, and
GaInN are very important for many device properties such as power
efficiency, amplification, noise, device heating, and reliability. In this
work, a fundamentally novel approach to low-resistance ohmic contacts to
AlGaN, GaInN, and GaN will be developed and investigated. The contacts are
based on the employment of the strong spontaneous and piezoelectric
polarization fields occurring in GaN and related compounds. The polarization
fields in the near-surface layers of metal-semiconductor contacts will
enhance the tunneling probability of carriers thereby reducing the ohmic
contact specific resistance. The theory and modeling pertaining to tunneling
probability, contact formation, and specific contact resistance will be
developed. Polarization-enhanced contacts will be demonstrated and reduced
contact resistances will be verified. In addition, the role of polarization
fields in AlGaN-GaN superlattices will be investigated and the superlattices
will be optimized for ohmic contact applications.
An integral part of the work will be the incorporation of the
polarization-enhanced ohmic contacts in optoelectronic and electronic
devices. Light-emitting diodes (LEDs), in particular LEDs used for
high-power illumination applications, are in need of low resistance ohmic
contacts in order to reduce device heating and improve device efficiency and
reliability. GaN/GaInN LEDs with polarization-enhanced ohmic contacts will
be demonstrated. Polarization-enhanced ohmic contacts will also be realized
in lasers and transistors and improved properties of these devices will be
demonstrated.
******************************************************************